A Site survey in support of IODP Drilling proposal 626-Full "Cenozoic Pacific Equatorial Age Transect: Following the Palaeo-Equator"

This project will acquire seismic data and piston cores to support IODP proposal 626, which focuses on Cenozoic climate change as elucidated by a paleo-Equatorial transect in the Pacific. The research is collaborative with a NERC UK-IODP to researchers at Cardiff University and University of Southampton. The proposed work focuses on the identification of drillsites through standard marine seismic surveying with a short streamer, integration of seismic reflection data with existing data, interpolation of important stratigraphic interfaces over large regions of the Pacific, and inversion of data to constrain equatorial Pacific biogenic sedimentation during the Oligocene and Miocene transitions. Broader impacts include fostering of international collaboration on an IODP site survey project and inclusion of undergraduates in shipboard and shorebased research.